A Manual to the Plants of Costa Rica - Final Phase

This biodiversity survey project will complete the final, three- year phase of a remarkable ten-year study that will document the plants of Costa Rica. The manual will be published in English and Spanish and will include keys, diagrams, descriptions and geographic distribution of the plant species. Simultaneously, this data (checklists, keys, full treatments and illustrations) will be available as a computerized database to scientists and students. Collaborators in Costa Rica include scientists at INBio, the Museo Nacional and the Organization for Tropical Studies. The data will be incorporated into a GIS database at INBio. Representative plant collections for research and training of students have been and will continue to be deposited at these institutions as well a Missouri Botanical Garden. The manual and the on-line database will be an essential biodiversity research and conservation reference for tropical biologists and for biologists in Costa Rica and throughout Latin America. %%% This biodiversity study will complete a remarkable ten-year study to survey, inventory and document the plants of Costa Rica. The resultant manual will be published in English and Spanish, with the data available as a computerized database to scientists and students. Collaborators in Costa Rica include scientists at INBio, the Museo Nacional and the Organization for Tropical Studies. The study will continue to yield representative plant collections for research and training of students in Costa Rica and at Missouri. The manual and the on-line database will be an essential biodiversity research and conservation reference for tropical biologists and for biologists in Costa Rica and throughout Latin America.